New Problems in Homotopy, K-Theory, and Representation Theory

9802493
Kuhn
Professor Kuhn has a long record of developing both homotopy-
theoretic and representation-theoretic methods to solve problems in
both areas. More recently, some of these methods have led him also
in algebraic K-theoretic directions, and his research and techniques
are being used extensively by others. The largest part of this
project is directed towards connecting classic loopspace theory with
the more recent developments of `S-module' and `Goodwillie calculus'
technology, with the focus of these efforts aimed towards
establishing new conjectures concerning well known and much studied
topological objects: Eilenberg-MacLane spaces, Hopf invariants, and
combinatorial function space models. A second part of the work is
part of the rapid development being made now in algebraic K-theory
and generic representation theory over finite fields by Professor
Kuhn, K-theorists Eric Friedlander and Andrei Suslin, and their
collaborators. Finally, Professor Kuhn and his students are
continuing work on topological realization problems, using both new
homotopy theoretic and algebraic techniques, following the direction
of earlier work by Professor Kuhn and Lionel Schwartz of Paris.
Homotopy theory, K-theory, and representation theory are
mathematical subjects in which one is trying to discover, and
ultimately classify, fundamental ``building blocks'' of various sorts
of mathematical structure. (This is quite analogous to a chemist's
studying simple molecular configurations, and how these can be
assembled in more complex ways.) Homotopy is concerned with
deformations of geometric objects such as higher dimensional surfaces.
Representation theory is concerned with the algebraic symmetries of
more rigid and discrete objects such as configurations of lines and
planes. Finally K-theory is a hybrid of the two. Professor Kuhn is
studying intriguing new connections relating these subjects, using a
variety of state-of-the-art algebraic and homotopy theoretic tools,
many developed by himself.
***